Conference: Thematic Program in Geometric Group Theory

This award provides support for US based participants in the semester-long thematic program in Geometric Group Theory to be held at the CRM in Montreal, Canada during the months of January–June, 2023. More particularly the award will support the travel of approximately 50 junior participants from institutions in the United States to the conferences and workshops taking place as part of the program. Geometric Group Theory is the branch of mathematics concerned with the symmetries of abstract geometric objects, which range from graphs (systems of networks) to surfaces to three-dimensional shapes such as our physical universe. The geometric study of symmetries is an active and rapidly expanding field. This award will enhance the conferences with additional connections and collaborations, and benefit US institutions by spreading new techniques, questions and research ideas, thus contributing to the training of the next generation of mathematicians.

The semester program will include 6 workshops around vibrant sub-areas of Geometric Group Theory: “Measured group theory” looks at groups from a probabilistic perspective and is highly interdisciplinary; “Cube complexes and combinatorial nonpositive curvature” includes new topics within a very well-established subfield of geometric group theory; “Geometry of subgroups” concerns the study of the geometry and finiteness properties of subgroups and is an emerging area in the field; “Groups around 3-manifolds” involves the interplay between 3-manifolds and Lie groups with geometric group theory; “Orderable groups” studies groups with an invariant left-order and is a classical topic that has become of recent interest through a broad range of applications; and “Huge groups” studies groups acting with infinite stabilizers and seeks to broaden successful aspects of the current theory.
More details about the semester activities can be found at this website: https://www.crmath.ca/en/activities/#/type/activity/id/38271

Please report errors in award information by writing to: [email].